Gordon Research Conference on Mammalian DNA Repair: to be Held in Ventura, CA, February 2-7, 1997

9604605 Paterson The sixth bi-annual Gordon Research Conference on Mammalian DNA Repair will be held in Ventura, CA, Feb. 2 - Feb. 7, 1997. The invited speakers are experts in the fields of DNA repair and related cellular processes (e.g. DNA replication, transcription, cell cycle control and apoptosis). Besides providing a forum for these experts to present their most recent results and ideas, the Conference will facilitate wide-ranging interactions among all attendees through plenary discussion sessions and poster presentations. The attendees will be chosen globally from universities, research institutes, and government and industrial research labs. Every effort will be made to select a well-balanced mix of individuals ranging from leaders in mammalian DNA repair to students and younger scientists new to the field. %%% This Conference will examine mammalian DNA repair as a key component of the genomic surveillance machinery crucial to the overall integrity and function of higher organisms. Recent discoveries have catapulted DNA repair into a pivotal position in fundamental biological studies. ***